Autonomous Reef Monitoring Structures Resilience: Strengthening coral reefs and food systems

Coral reefs are a critical nexus of many food systems, as a primary source of protein and micronutrients for ~1 billion people, and they are highly sensitive to changing ocean and land conditions, which can deplete their nutritional capacity. Agriculture production is also negatively impacted, particularly in areas experiencing higher levels of drought. Thus, when drought and reef decline occur in tandem, it signals a particularly grave threat to communities, making resilient food systems an immediate and critical challenge. This project will investigate different approaches to addressing these shocks to food systems.

The project team will work with local communities to develop new food sources, systems to retain nutrients locally and a decision framework to enable communities to meet their nutritional needs. The project will rely on a continuous data collection program to assemble precise and up to date information. Temporal data will increase the resolution of the decision framework, thereby testing the ecosystem and food resource enhancement approaches on longer timescales. Data collection will leverage cutting-edge environmental monitoring techniques, including environmental DNA and image and video-based mapping and monitoring, to obtain a unique and holistic view on the functioning of the marine and terrestrial ecosystems. The project team will build on previous work in the test area of Southwest Madagascar, and the resulting framework with be directly transferable to other areas where drought and reef decline are impacting coastal communities in the United States such as Florida, Hawaii, the U.S. islands in the Caribbean and the Pacific. This project will enable U.S. communities to continually assess the health of the marine and terrestrial human-environment ecosystem and continually update the decision framework to bolster the food system and will be used as an early warning system for food shocks.